SGER : Research Experience for K12 (REK)

IIS-0633930
Elke A. Rundensteiner <[email]>
Worcester Polytechnic Institute

SGER: Research Experience for K12 (REK)

This project seeks to inspire young people to consider advanced
degrees and skilled professions in computer science. The approach
taken towards outreach is unique. One, students are targeted at an
early stage, namely, in K12. Two, these K12 students are given the
opportunity to first-hand engage in an active research project --
working side by side with scientists (REU students, graduate students,
and faculty) in the computer science department at Worcester
Polytechnic Institute. The two-tier involvement of participants
consists of stage 1: smaller projects throughout the academic school
year, and and stage 2: in-depth projects during the subsequent summer.
This project takes place under the umbrella of on-going NSF-projects
research projects in stream monitoring technology and its
applications. Stream monitoring is a novel paradigm for processing
queries over data streams (instead of in a static database only),
supporting applications such as sensor stream monitoring, fire spread
prediction, and network intrusion detection. The effectiveness of
this outreach project is assessed based on standard pre- and post-
surveys. As broader impact, participants are recruited from the
(highly diverse) public school system of the City of Worcester. This
exploratory project is to inspire the K12 participants to consider
future careers in computer science, thus contributing to a much needed
skilled workforce in this increasingly digital world. It may also
provide new insights into models of how to inspire our youth to consider
careers in computer science, and possibly other sciences or engineering.
The project results will be disseminated via the project Web site:
(http://davis.wpi.edu/~dsrg/PROJECTS/REK-NSF/).